The Role of Trust in Risk Perception and Risk Management

Trust is important for all forms of human social interaction and lack of trust appears to be a critical factor in creating the divisive controversies that surround the management of risks from modern technologies. Over the past 25 years, our society has witnessed a steady erosion of trust in the technical, legal, governmental and institutional systems that are called upon to manage risks. This proposal describes research designed to understand the nature of trust, its role in risk management, and the individual, technical, and organizational behaviors that are needed to build and maintain it. Specific studies are planned to determine the multiple facets or characteristics of trust, analogous to the characteristics that have been found to underlie perceived risk. Additional studies are designed to illuminate the events and processes that create and destroy trust in risk management.